Collaborative Research: Indian Ocean Currents: The WHIP Lowered and Shipboard ADCP Survey in the Context of Models and other Measurements

0002128

Donohue

In this project, the PIs will analyze data from Acoustic Doppler
Profilers (ADCP) used during the Indian Ocean Survey carried out as part
of the World Ocean Circulation Experiment (WOCE). Shipboard ADCPs
provided high resolution sections of velocity in the upper 300 meters
along the survey lines. Lowered ADCPs (LADCP) provided full depth
profiles at every hydrographic station along the tracks. The central
objective is to describe the ocean current field in the Indian Ocean,
with emphasis on the deep lowered ADCP data set. The study will also
include use of other parameters measured such as temperature, salinity,
chemical tracers, float and drifter tracks, satellite altimetric sea
level measurements, etc. Observed currents will be compared with
numerical general circulation model output to evaluate the models'
ability to mimic the phenomena and dynamics of the ocean.